New Statistical Challenges Posed by Multiscale and Adaptive Representations

NEW STATISTICAL CHALLENGES POSED BY MULTISCALE AND ADAPTIVE
REPRESENTATIONS D.L. Donoho & I.M. Johnstone, PI's.
Project period: 07/01/00 -- 06/30/05

The project will address the following specific topics:
1. Estimation in tomography: the curvelet tight frame of
representation seems, according to preliminary calculations, to
achieve faster rates of convergence than traditional tomographic
methods.
2. Estimation and testing in time-frequency analysis: a new tight
frame of chirplets has been built by deploying curvelets in the
time-frequency plane. The new representation has promise for detection and
estimation of chirps in the presence of noise.
3. Recent work in computational vision asks ``what is the best basis
for representing natural images?'' It is proposed that many empirical
results in the rapidly growing literature on this topic might be
explained and improved using analytically-constructed representations:
ridgelets and curvelets.
4. Geometry-driven diffusions are popular in applied image processing
-- but their quantitative performance is not well-understood. It is
proposed to develop a quantitative statistical theory using recent
tools such as multiscale ridgelets.
5. Extensions of Sparsity-Based ideas. Problems of finding `edgels in
white noise' and `subspaces in white noise' offer challenging and
timely directions in which to generalize existing sparsity ideas.
6. Testing Sparse Means. An adaptive approach is suggested for
testing if the mean of a random vector is nonzero, when the vector
might exhibit an unknown degree of sparsity.
7. Asymptotics of top eigenvalues of large covariance matrices.
A program is set out to develop statistical theory for principal
components of large data matrices based on recent progress in
random matrix theory.
Consistent with the principle of ``reproducible research'', software
and figures from this project will be made available in future
releases of the public domain WaveLab system.

In recent years, research in wavelets and time-frequency methods has
broadened to construct new systems of representation, including
systems custom-tailored for specific phenomena. Examples include
wavelet packets and cosine packets, and very recently, systems like
edgelets, ridgelets, chirplets, warplets, and curvelets. In parallel,
research in statistical analysis and cognate fields allows data
themselves to dictate the design of their own optimal systems of
representation. Principal components (i.e. Karhunen-Loeve
decomposition) is the oldest example of such data-adaptive
representation; many newer ideas have been proposed recently, such as
independent components analysis. The proposers have been
active in both domains, creating new image and signal
representations and developing statistical theory to underpin adaptive
signal representations. The current project will (a) pursue two
opportunities arising from the recent introduction of curvelets, (b)
address two active applied research areas, computational vision and
geometry driven diffusions, and (c) attack some issues which are
argued to be at the core of new developments in statistical decision
theory. Topic (a) may have implications for applied work in
tomography, image and signal processing, and (c) may impact applied
uses of principal components in domains such as climate and global
change studies.